Visual Control of Prey Pursuit

IBN 97-28032 GILBERT Detection of targets while moving is difficult for systems that track targets visually, because the observer's own movements degrade the target image by blurring it. The blur causes a decrease in visual contrast between the target image and the background that makes it difficult to localize the target. Such motion-induced problems in target detection exist for moving animals, such as visually-hunting predators, and also for man-made systems, such as optically-guided robots. Predatory animals have evolved various strategies for coping with degradation of target images during pursuit. Tiger beetles are diurnal, visually-hunting predators that pursue their moving prey by running discontinuously, i.e., after initially localizing its prey, a beetle runs very fast (over 0.5 meter per second), then stops briefly (a few hundred milliseconds), then runs fast again toward the prey. This pattern of stop-and-go is repeated three or four times until the continuously moving prey is caught. In preliminary experiments, Dr. Cole Gilbert filmed beetles pursuing live prey or experimenter-controlled prey dummies. Frame-by-frame analysis indicated that a beetle stops only long enough to relocalize the prey. While a beetle is stopped, the image of the prey is not degraded and thus may be easier to see and localize. Subsequently, while the beetle is quickly running toward the prey, its image is degraded, perhaps so much so that the beetle loses track of it and must stop again. This hypothesis is supported by results from experiments in which beetles pursued prey dummies of very high contrast. In such pursuits, beetles were able to run continuously after the prey without stopping, suggesting that the visual contrast of the target image determines the type of pursuit the beetle can afford. Dr. Gilbert will investigate visually-guided pursuit by tiger beetles using a newly acquired digital camera capable of much higher speeds than his previous equipment . In particular, he will more rigorously test the hypothesis that viewing conditions determine whether the beetle performs continuous or stop-and-go pursuit. In short, is the beetle's switch in behavior an adaptive response to the amount of degradation of the target image? Various levels of target contrast and velocity will be used to produce different amounts of degradation and the dynamic properties of the resulting pursuits will be analyzed. The results from the project will elucidate the strategy used by the tiger beetle to cope with degradation of target images caused by the beetle's own high velocity. Moreover, the results may suggest useful strategies for man-made exploratory machines that often need to efficiently survey large areas quickly. The project may reveal that in some situations, the beetle's strategy of moving quickly then stopping to gather visual information may be more efficient than moving slowly enough to avoid image blur so that visual information can be gathered continuously.